CMG RESEARCH: Numerical and Experimental Validation of Stochastic Upscaling for Subsurface Contamination Problems Involving Multiphase Volatile Chlorinated Solvents

Nonlinear problems with multiple scales, heterogeneity, and
uncertainty are pervasive in science and engineering. In this
context, analytical theories are limited by unrealistic modeling
assumptions, and extensive large-scale physical experiments are
impractical. Computational modeling and experimentation, the
"third methodology" of science, has a critical role to play in
conjunction with theory and physical experiments. This project
combines the three methodologies to study multiphase flow in
porous media, specifically the remediation of groundwater
contaminated by dense nonaqueous-phase liquids (DNAPLs). Field
scales are much too large for small-scale effects to be directly
representable in practical computations. Multiphase flow in
heterogeneous subsurface formations involves local phenomena at
material interfaces whose valid effective representation at
larger scales is not understood. Uncertainty is central, because
of the lack of complete or precise data, and because of the
randomness of small-scale properties and flows when viewed from a
larger scale. The project develops a nonlinear upscaling
methodology based on a macro-scale stochastic theory of multiphase
flow and transport that accounts for local phenomena at
micro-scale material interfaces. The theory is applied
numerically, so that limiting theoretical assumptions are local
in space and time. The model is validated by multiple-scale
heterogeneous laboratory experiments, using realistic chemicals
and soil properties, that creates a "physical Monte Carlo"
database for comparison.

Environmental restoration is important to society. Remediation
of contaminated groundwater often requires the study of the
simultaneous flow of multiple non-mixing fluids through porous
subsurface soils and rocks. These aquifers consist of many
different materials and exhibit features such as layers and
faults on a multitude of scales, all of which affect the fluid
flow. In small-scale detail, these effects are uncertain in
practical situations, because available data are insufficient
to describe the subsurface precisely, and because these details
are quite random from the standpoint of the larger field scale
at which a hydrologist wants to analyze the appropriate strategy
for a remediation project. This project develops a methodology
that enables a scientist to describe the aquifer at the field
scale, so that strategies can be formulated and tested in the
setting where they will be applied. This "upscaling" methodology
based on probabilistic concepts is an advance with wide
implications beyond environmental restoration itself, important as
it is, because similar issues arise throughout science and
engineering. The project's combination of theory, computation,
and physical experiments requires the close interdisciplinary
collaboration of a mathematician and a geoscientist.